Collaborative Research: SHF: SensABridge: Learnable Sensor-AI Bridge for Ubiquitous Edge Intelligent Processing

The surging integration of sensors and artificial intelligence (AI) at the edge is transforming the connected world at every aspect, from wearable health monitors and autonomous vehicles to intelligent robotics and smart infrastructure. However, current systems rely on transmitting massive amounts of high-quality sensor data off-chip for AI processing, creating unsustainable demands on energy, bandwidth, and latency while raising growing concerns about data privacy and security. As a result, front-end sensing has emerged as a critical bottleneck limiting the efficiency and scalability of next-generation intelligent systems. This project addresses this challenge by advancing a new paradigm in which sensors directly extract task-relevant information at the point of capture, dramatically reducing unnecessary data movement and enabling faster, more energy-efficient, and privacy-preserving operation. By improving the performance and sustainability of edge intelligence, this work supports national priorities in health, economic competitiveness, and technological innovation, while also strengthening capabilities relevant to national defense. The project further contributes to society by developing open-source tools to accelerate innovation and by training an interdisciplinary workforce through integrated research and education in integrated circuits, electronic design automation, and AI.

This project will develop holistic algorithm-hardware co-design framework that enables efficient, scalable, and flexible integration of sensing and AI in resource-constrained edge systems. The central objective is to overcome the inefficiencies of conventional sensor-AI pipelines by tightly coupling feature extraction, encoding, and compression within the sensor itself. To achieve this, the team will pursue three tightly integrated research thrusts: (1) establishing an algorithmic foundation through a universal end-to-end architecture for in-sensor compression, feature extraction, and on-demand reconstruction that interoperates with diverse backbone AI models; (2) developing a compressive hardware foundation that leverages existing in-sensor processing capabilities or introducing new sensor architectures for efficient feature extraction and encoding across edge platforms; and (3) advancing modeling, design automation, and prototyping by creating cross-stack design tools and building sensor prototypes to validate improvements in efficiency, scalability, and versatility for applications such as real-time machine vision and continuous physiological monitoring. These efforts will culminate in an open-source platform, providing tools, datasets, and benchmarks to promote reproducible research and accelerate innovation across integrated circuit design, electronic design automation, and AI, thereby establishing a new foundation for in-sensor intelligent processing.